Structural Properties of Photospheric Magnetic Fields

9309901 Lawrence Digital, photometric images of line-of-sight solar magnetic and velocity fields, obtained at high spatial resolution, will be analyzed using modern fractal, wavelet transform and percolation methods. This study will develop a quantitative, non- morphological, approach to the structural properties of solar magnetic fields over a range of spatial scales. The results of the analysis will be used to confront random dynamo models of the generation of small-scale photospheric magentic fields, on the one hand, with the observed field distributions, on the other. ***